Project MTS-Enhancing Evaluation Capacity in Science Education through Metaevaluation, Training and Support Services

The Evaluation Center at Western Michigan University proposes to continue development and conduct evaluation activities to support the field of science, mathematics, engineering and technology education that were initiated under a previous grant with the Division of Research, Evaluation and Communication. Under this award, the Evaluation Center will continue to conduct a summer training workshop for evaluators followed by internships in an NSF program, and will expand training to awareness workshops in the Regional Educational Laboratories. They will also continue to develop an Evaluator's Directory on the web and will expand their electronic services to include a help desk on evaluation and to provide listings of tools, models, and professional activities.